Mathematical Sciences: Colorado Conference on Iterative Methods

Manteuffel The researcher and his colleagues organize a conference devoted to iterative methods for the solution of linear and nonlinear systems of equations. Particular themes are nonsymmetric linear systems, globally convergent algorithms for nonlinear systems, algorithms of optimal order of work, and applications on multiprocessor computer architectures. The mathematical description of real-world problems leads inevitably to equations to solve. Many times the equations are nonlinear ones, arising because the underlying problem is nonlinear. Often, however, the original problem is linear and the mathematical equations are too. Such problems arise in all areas of science and technology, and are of special interest in biology, materials, environmental studies, and manufacturing. Progress in these areas requires solution of more comprehensive modeling equations, or more accurate solution of existing models. In either case, these needs increase the size of the equations or their nonlinearity. The conference addresses advances in algorithms to deal with the bigger size of the equations, nonlinearities, the amount of time and work needed to get a solution, and the possible use of multiprocessor computers. ***